Great Lakes Geometry Conference

Abstract

Award: DMS-0302452
Principal Investigator: Xiu Xiong Chen

The next Great Lakes Geometry Conference will be held May 1 - 4,
2003 at the University of Wisconsin-Madison. This is an
international conference held annually in the Midwest region,
rotating among different universities. The aim of this conference
will be to introduce the latest developments in the field of
geometric analysis and some closely related areas. A partial
list of topics which will be covered by this conference include:
(Kaehler-) Einstein equation and constant scalar curvature metric
equation (Yamabe problem); (Hermitian-) Yang-Mills equation;
minimal surface equation; harmonic map problem and J- holomorphic
curves (Cauchy-Riemann equation); and the geodesic equation in
the infinite dimensional space of Kaehler metrics which is given
by a homogenous complex Monge-Ampere equation. These equations
fit together with the corresponding evolution equations:
(Kaehler-) Ricci flow, Yang-Mills flow, the mean curvature flow,
and the harmonic map flow, etc. People would like to know (local
and global) existence, regularity and uniqueness of solutions to
these equations. Many deep works have arisen by studying
different aspects of these challenging problems.

Differential geometry is a fundamental and vital field of
mathematics which has many far reaching applications beyond the
realm of pure mathematics. To name a few: the study of Kaehler
geometry, especially Calabi-Yau manifolds, has important
applications in theoretical physics; the study of (inverse) mean
curvature flow has important applications in image processing;
and the study of curves, surfaces and their higher-dimensional
analogues have important applications in computer graphics,
engineering and optimization.